Understanding and Teaching the Mathematical Concepts of Functions and Their Graphs

This project will conduct three interrelated R & D studies on understanding and teaching the mathematical concepts of functions and their graphs in the Cartesian plane. These studies (1) elaborate the role of concrete materials and intuitive notions in students'developing conceptual understandings of functions and graphs' (2) develop and examine computer-based softare and curricula for developing deep understandings of these concepts' and (3) elaborate the role of interactions in learning, characterizing some limitations of learning via the narrow bandwidth of computer-based tutorizl systems. The studies are as follows. (1) A comparison of "apparatus-based" learning with learning in a purely symbolic environment. These investigators plan to elaborate (a) the role of intuitions about pysical objects in helping studends come to grips with their mathematical representations, (b) the conceptual underpinnings of robust understanding in this domain, and (c) the mechanisms of concept acquisition. (2) The examination of innovative curricula (a) in schools chosen for the diversity of their student populations, with an emphasis on including at risk and minority students, and (b) in the project laboratory with a sample of students from the same schools. These investigations will explore the effects of each setting on the kinds of learning that take place in it, and to see what kinds of extrapolations can be made from the laboratory to the classroom. This work is in collaboration with the Interactive Mathematics Project (IMP). IMP is chartered with the development of pilot curricula consistent with the new California Mathematics "Framework". The units have the potential for wide distribution. (3) A comparison of human and computer-based tutoring strategis. Using a computer-based interface named OZ, the project staff will simulate computer-based tutoring on functions and graphs, when the tutoring is in fact done by a person at a distance. Comparisons of "live" and "at a distance" tutoring will provide insights into (a) the strategies used by human tutors that depend on personal interactions, and (b) the kinds of constaints that need to be overcome for effective machine tutoring.